Summer School in Nuclear Physics

9424452 Bertsch We propose to organize an annual summer school in nuclear physics research, continuing the National Summer School in Nuclear Physics held annually since 1988. The school would bring together leading researchers to lecture on their specialties to advanced graduate students in experimental and theoretical nuclear physics. The overall goal of the schools is to provide students with a reference frame for defining critical problems of nuclear physics and the most useful methods of analysis of the problems. This addresses one weakness in the current nuclear research environment, which is the relative isolation of university- based nuclear research groups. We also expect that the close contact with leading researchers will be beneficial in increasing the number of students going on to productive research careers. ***